ITR: Networks of Strategic Agents: Theory and Algorithms

Networks of interacting agents play a fundamental role in many
domains, ranging from physical communication networks such as the
Internet to social networks arising from relationships between people.
These networks grow and evolve through interactions of large numbers
of participants, yielding complex global structure and dynamics.
Often this leads to systems that function efficiently and reliably;
but in other, seemingly similar settings, networks can exhibit latent
inefficiency or cascading failures. Such failures occur not only in
physical networks but also in social ones, as illustrated by recent
financial crises which propagated through networks of relationships and trust.
Despite considerable interest in these topics, the research community
is only beginning to understand the behavior of networks such as
these; small variations in the incentives, information, and
computational power possessed by the agents in a network can have
profound effects on network behavior, yet the principles underlying
these effects remain elusive.

This project develops theoretical and algorithmic underpinnings of networks
that arise from the interaction of strategic agents. By combining
game-theoretic approaches with computational models of interacting
agents, the work develops models that are richer and
more informative than either those that consider strategic agents in
the absence of interaction networks or those that consider network
structure in the absence of game-theoretic models of the agents.
Networks of strategic agents are investigated at several different levels,
extending from questions of structure to those of function and behavior.
One of the project's central goals is to examine the
inter-relationships between these three levels. In contrast, most
current techniques are tuned to a single level in isolation, with
work in computer science and mathematics focusing primarily on structure
and work in economics emphasizing strategic behavior.

The project's inter-disciplinary nature exposes similarities between
questions in communication networks, including the Internet, and
those arising in social networks, such as trust in markets.
Beyond analyzing questions arising from these networks in general,
a particular goal is to better understand the
networks of interactions underlying electronic markets.
Indeed, while it was widely predicted that such marketplaces would
revolutionize trading of goods and services, very few have survived.

The project participants contribute expertise from several perspectives.
They have made some of the fundamental contributions to
algorithmic game theory, computational and economic analysis of
interacting agents, and models for complex networks, as well as to the
understanding of market microstructure and the design of electronic markets.

Further, the investigators have been key participants in
the new Information Science program at Cornell.
This program seeks to broaden the reach of computational
ideas by attracting students from non-technical backgrounds, and
incorporating notions of computation as a human-centered activity
that is intrinsically embedded in social, legal, and economic contexts.
The scientific results of the project support
the intellectual underpinnings of this program at both
the graduate and undergraduate levels.
Many of the models involved in the research have an immediate intuitive
appeal, and are well suited to interactive graphical demonstrations.
These demonstrations can be used to broaden general understanding
of the nature of strategic interaction and its networked character,
and can be made broadly available through the National Science Digital Library
(NSDL) where appropriate to pre-collegiate educational levels.

The Internet is but the newest of many networks of strategic agents.
However, it has served to change the structure and function of other
networks, as it enables instantaneous, always-on, global communication.
Understanding the theoretical underpinnings of these
changes can provide important societal benefits in terms of more
secure, stable communication and economic systems.